Light Curves and Statistical Samples of QSO-Galaxy Gravitational Lens Systems

AST 98-02802 Edwin Turner Dr. Turner is pursuing three investigations: (1) to continue ongoing photometric monitoring of candidate and known lens systems using the APO 3.5m; (2) to make follow-up observations of new candidates lens systems identified in the Sloan Digital Sky Survey (SDSS) data; (3) to conduct related theoretical investigations. Gravitational lensing is a powerful tool for studying fundamental problems in cosmology and astrophysics. Dr. Turner is using the Apache Point Observatory (APO) 3.5m telescope to continue photometric monitoring of candidate and known gravitational lens systems. The light curves are used to measure the expansion rate of the universe, to test the lens hypothesis for controversial systems and to detect microlensing events with fundamental implications for the nature of dark matter and the very small scale spatial structure of quasars. Dr. Turner is assembling a well controlled statistical sample containing perhaps hundreds of lens systems. ***